NSFGEO-NERC Collaborative Research: Effects of a Changing Climate on the Habitat Utilization, Foraging Ecology and Distribution of Crabeater Seals

Part I: Non-technical description: The crabeater seal is the most important predator of Antarctic krill in the western Antarctic Peninsula oceanic waters after the disappearance of large whales due to human hunting 100 years ago. The crabeater seals are expected to consume large quantities of krill due to their high abundance (about 7 million individuals), large body size (about 700 pounds in body weight), high metabolism and a diet specializing in krill. This species depends on sea ice presence all year long, living, reproducing, and diving to feed from that environment, making this marine mammal species a good indicator, or sentinel, of how the Antarctic ecosystem responds to a changing climate. As sea ice has been decreasing in the northern Antarctic Peninsula, this project aims to understand if the species food availability has changed in the last decades in response to environmental changes. In particular, the proposed work will concentrate on known populations of crabeater seals in northern (i.e., warmer, sub-polar) and southern (i.e., colder, polar) Antarctic Peninsula, 450 miles apart, making measurements on the abundance, physiology, metabolic needs and movement of the crabeater populations in both locations. The data will be combined to build models that will quantify the existing differences between northern and southern populations, as well as predict their future change, and compare present-day measurements with those collected by the British Antarctic Survey in the mid-1900s. The project is a collaboration between an international and interdisciplinary team from the United States and United Kingdom, benefitting NSF goals to facilitate collaborative geoscience research projects involving these two countries as well as aligning directly with U.S. Global Change Research Program (USGCRP) to better understand the forces shaping the global environment, both human and natural, and their impacts on society. To further increase polar literacy and education, Principal Investigators will train at least 2 graduate students and several undergraduates across two US institutions, as well as one UK-based post-doctoral researcher.

Part II: Technical description: Crabeater seals (Lobodon carcinophaga) are considered an excellent sentinel species through which to examine the effects of a changing climate on the extended Antarctic krill-dependent predator community and the structure of the entire ecosystem of the western Antarctic Peninsula. Over the last forty years, there have been significant changes in the temporal and spatial patterns of primary productivity, and shifts in the population dynamics of Antarctic krill, the dominant mid-trophic level species. The impact of such changes on year-round resident species of crabeater seals (the most important predator of Antarctic krill) is more difficult to understand as they are not associated with breeding colonies where their population fluctuations could be more readily observed. The proposed research is conceived under the premise that environmental change has accentuated the differences between the northern and southern western Antarctic Peninsula crabeater seal populations due to differential reductions in sea-ice and its possible effect on prey availability. To address this question, this research will combine measurements on animal movement, stable isotope analyses, whole-animal physiology, and novel survey technologies (small Unmanned Aircraft Systems, satellite imagery) to build models. The project is a collaboration between an international and interdisciplinary team from the United States and United Kingdom. These studies will be essential to detect past, and project future, changes in the ecology of this species in response to changes in sea ice when comparing present-day measurements with those collected by the British Antarctic Survey in the mid-1900s. To further increase polar literacy and education, Principal Investigators will train at least 2 graduate students and several undergraduates across two US institutions, as well as one UK-based post-doctoral researcher. Students involved with this project will gain invaluable research experience in the lab and will have a unique opportunity to participate in Antarctic fieldwork.